L-functions and Operators

Dr. Lagarias proposes to study various analytic problems related to
zeta and L-functions in number theory. There are three topics.
The first topic is the study of Li coefficients as a family and their
compatiblity with automorphic representations. The second topic
concerns interpreting zeros of automorphic L-functions in the
framework of Hilbert spaces of entire functions, and study of
associated operators. The third topic is the study of generalizations
of a two-variable zeta function of van der Geer and Schoof
involving automorphic forms.

This proposal is in the general area of mathematics called number
theory. This work studies various problems associated to the
distribution of prime numbers. These include possible
description of some of its properties in terms of equations in
mathematical physics. Number theory is an old field which in recent
years has provided many useful applications in communications,
coding theory and cryptography. The performance of some
cryptographic procedures-necessary to secure internet communications -
are related to subtle problems on the distribution of prime numbers.
The questions treated here overlap different fields of mathematics and
this research may stimulate interactions between researchers in these fields.